ITR: Investigation of a Model for Online Resource Creation and Sharing in Educational Settings

EIA-0085921
Kortemeyer, Gerd
Michigan State University

Information Technology Research: Investigation of a Model for Online Resource Creation and Sharing in Educational Settings

The advent of widely accessible networked computer technology has opened
new avenues for educators, yet the creation of appropriate resources for
this medium is extremely time and effort intensive. To truly become more
effective than a textbook, a resource needs to take advantage of its medium
by being interactive and part of a learner-centered, adaptable and
individualizing whole. This research project is designed to address
questions of resource pooling and sharing across content areas. The
investigators will incubate multi-institutional collaboration and bring
together stakeholders to address content issues such as reuse,
customization, online community building, quality, and effectiveness. An
existing software system under development will be used as a model to
support the formation and study of an online collaborative community,
including workshops, conferences, support, evaluation, and dissemination.